U.S.-Germany Cooperative Research: Thermodynamic and Transport Properties of Silicate Melts and Glasses

9815351
Zhang
This award supports Drs. Youxue Zhang and Rebecca Lange and two postdoctoral or graduate students from the University of Michigan in a collaboration with Francois Holtz and Harold Behres of the Institute for Mineralogy at the University of Hannover, Germany. The research funded by this award will focus on thermodynamic and transport properties of silicate melts and glasses, especially as affected by dissolved H2O. Understanding the effects of dissolved H2O in silicate melts on such properties as viscosity, density, crystallization temperature, and diffusivity is critical to a complete understanding of geological processes. Because of the complementary expertise and facilities of the German and U.S. groups, and their interest in different aspects of the same research problems, this collaboration will be of great benefit to both sides. The research program will investigate many new areas of collaboration that will increase our knowledge of geological and volcanic phenomena.